Analysis of Arlindo Data

0099152 Gordon
Funding is provided to complete the analysis of the comprehensive data set collected over the last data decade by the ARLINOD project in the Indonesian Seas. An array of CTD stations, with a lowered Acoustic Doppler Current Profiler in 1998, was sampled from 1991 to 1998 within the deep Indonesian Seas, east of Kalimantan, and moored current meter and temperature measurements were collected in the Makassar Straits from December 1996 to July 1998. A comprehensive treatment of these data in conjunction with archived XBT data will be conducted to investigate various circulation and stratification characteristics with the Indonesian Seas pertaining to the Indonesian Throughflow and its monsoon and ENSO modulations. The central theme of the research is to place the Indonesian Seas into the context of larger scale climate phenomena and inter-ocean exchange. The specific objectives are to investigate: (1) spatial and temporal variability of the ocean stratification (surface, thermocline and deeper water) within the Indonesian Seas, and (2) the relationship of Makassar Strait mass and thermohaline fluxes to regional and larger scale stratification characteristics.